The Role of Enzymes in the Biodegradation of Polymers

9707030 Reyes This Planning Grant is to develop a systematic study of the interaction between hydrolysable polymers and microbial enzymes that can catalyze the polymer degradation. Polymers will be chosen that have potentially hydrolysable backbone functionality, e.g., polyesters, polyamides, etc. The enzymes will be chosen from four classes of hydrolases including lipases, proteases, and cutinases. The enzymes will be tested individually and in combinations. The impact of physical environment and the possible impact of natural adjuvants such as salts and biosurfactants, will be investigated. ***